The Second IEEE International Conference on Autonomic Computing

The primary goal of the International Conference on Autonomic Computing is to establish a world-class forum to investigate the research issues and enabling technologies toward the convergence of biological technological and information systems (called Autonomic Computing). Autonomic computing research will enable the design of the next generation of networked systems and services that are capable of managing and controlling themselves, and can anticipate their workloads and automatically adjust the configurations of their resources to meet the new loads.

The objectives of this conference are two-fold: first, by bringing together researchers in this field, to further understand and address the challenging research issues facing the development and deployment of autonomic systems and applications and support dynamic, data-driven application systems, i.e. applications that dynamically interact with others by sharing processing and data in novel ways and second, to focus and crystallize the needed direction of future NSF funding to maximize the scientific and technological "returns" from those research investments.